Linear Transport Theory

This project studies the theory and application of the singular Eigenfunction technique for linear neutron transport in media with continuously varying spatial properties. A unifying principle for a given spatial dependence is sought. A periodic medium is studied to determine its practical importance in the theory of homogenization of reactor cells. Efforts are extended to improve the collocation-numerical-solution method for use in reactor analysis. New tasks vary from improvements to standard approximate methods in diffusion theory to detailed, highly accurate solutions of transport problems. The problem areas are formulated to give significant engineering applications.